Digital Techniques in an Undergraduate Electrical Engineering Laboratory.

Demonstration of the use of digital techniques in representative electrical engineering contexts is the object of the proposed laboratory. The associated course is aimed at EE seniors and is comprised of a set of experiments which broadly exhibit the use of digital processing within EE systems. Eight similarly equipped student stations plus a central station for one-of-a-kind equipment form the ensemble to be purchased under this grant. Each station includes a unit for capturing, processing, and creating electrical waveforms. These units are basically general purpose micro-computers augmented with data acquisition and control modules. Additional instrumentation to create and observe signals, to produce output action, and to record results is proposed also and includes signal generators, transducers, oscilloscopes and other items of general purpose test equipment. The laboratory course is new and self-contained and complements several undergraduate EE courses for which no supporting physical senses. Together they demonstrate: the basic effects of quantization in time and in amplitude; serve action with an imbedded digital processor; random process phenomena; digital filtering; and signals encountered in telephony robotics, biomedical instrumentation, et cetera.